CISE Research Instrumentation

Graphic user-interface equipment will be provided for researchers at the University of Minnesota, (Duluth) for research in the Department of Computer Science. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the areas of: Visual analysis of information in a clustered search environment Visual modeling in decision support systems A graphic interface to a graph-theoretic data structure A design program in hyperbolic geometry Graphical tracing of heuristically controlled logic programs